WOCE Data Information Unit

In this project, the P.I. will continue operation and expand the scope of the Data Information Unit (DIU) for the World Ocean Circulation Experiment (WOCE). The DIU provides a means of rapid dissemination of information among WOCE scientists, and other scientists in the community, both about data sets collected and to be collected, and about other aspects of management and organization of WOCE.